Measurement of Excitation Functions for Stable and Long- Lived Isotopes

Research planning will be carried out for needed measurements of excitation functions of stable and long lived- isotopes at the Harvard Cyclotron Laboratory. The emphasis will be on isotopes of interest in astrophysical research. Coupled with accelerator mass spectroscopy techniques, understanding of the excitation (or production) mechanisms can be used in tracking (or dating) processes such as the constancy of the solar cosmic ray flux over geologic time periods.